SCINET/High Speed Connection

.Abstract
ANI - 9810141
PI: Larry E Druffel
South Carolina Research Authority

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. Under the auspices of the South Carolina Research Authority (SCRA), it provides partial support for two years for DS-3 connections from three South Carolina institutions: Clemson University, the Medical University of South Carolina and the University of South Carolina to Columbia, SC and OC3 from that point to the vBNS. This award will assist the SCRA with Phase I of a planned set of major enhancements to their SC Information Network (SCINET). Meritorious research to be supported through access to the vBNS includes work in Computer Science, Electrical and Computer Engineering, Mathematical Sciences, Physics, Bio- and Chemical Engineering, Digital Libraries, and in several areas of Medicine.